U.S.-Japan Cooperative Research: Structural Effects of Ion Transport in Macromolecules

This award will enable Prof. William J. MacKnight and colleagues of the University of Massachusetts to collaborate with Prof. Naoya Ogata and co-workers of Sophia University, Tokyo, Japan, over a period of two years. They will prepare and study structural effects on conductivity in new solvent-free, ion-containing polymer complexes. Chemical structure, polymer morphology and dynamics, and the state of the incorporated salt species will be studied in order to obtain new information about ionic conduction in this type of polymer. The objective of this work is to enhance our understanding of conductivity in polymers, a phenomenon which finds important application currently in solid-electrolyte batteries and which may even result eventually in polymeric semiconducting devices. The mechanism of conduction in solvent-free polymers is by ionic conduction, but little is now understood about why this process is as efficient as it is. In this work, the complementary expertise of each group will be utilized: the Japanese scientists will synthesize and characterize the ion-conducting polymers, and make electrical measurements of the transport properties of the ions; the U.S. researchers will determine the supermolecular structures and other properties of these materials, using a variety of physico-chemical- techniques.